Dissertation Research: Habitat Structure, Ontogeny and Modesof Mobility in Howling Monkeys

The primary objective of this doctoral dissertation improvement proposal is to investigate the relationship between habitat structure and foraging behavior in two howler monkey populations. Recently, many anthropologists have been interested in the ways in which morphology and positional behavior relate. One application of such information is in the added ability to then interpret the fossil evidence of human and primate evolution. Here, the PIs will observe two howler monkey populations living in different habitats and with differing dietary options. The PIs record movement, body postures and vegetational architecture on video for computer analysis in light of the available food sources. The results may help elucidate the extent and significance of interpopulational variation in positional behavior as it relates to habitat structure and food sources.